Mathematical Sciences: Stochastic Processes

The investigator will study diffusion on fractals and diffusion in Euclidean spaces. Problems in the area of diffusions on fractals include constructing Brownian motions on fractals imbedded in higher dimensional Euclidean spaces, estimating spectral dimension, estimating transition densities, and proving uniqueness in law. Problems in the area of diffusions on Euclidean spaces include proving uniqueness in law for diffusions with piecewise continuous coefficients and investigating the corresponding Dirichlet problems. The investigator is working on problems at the interface between probability, mathematical physics (i.e. the physics of disordered material), and geometry. He will construct Brownian motions (a probabilistic model for the displacement of a particle) on fractals. One result from this construction will be the estimation of the spectral dimension of the fractal, which the study of fractals has shown often to be the important dimension in physics.